Electron Microscopy Enhancement Project

9452255 Webers A scanning electron microscope and an upgrade of the attached energy dispersive system are being used to enhance the electron microscopy capabilities, including back scattered electron imaging and quantitative capabilities, of the science division. The scanning electron microscope is housed in a new laboratory complex with other instruments including a transmission electron microscope and an X-ray diffractometer. Students in a large number of biology, geology, and physics courses are using the new instrument, and students involved with research through either short term projects or more extensive honors research projects in a variety of disciplines are making use of the capabilities of the new system.